Energy Coupling and Wave Propagation Phenomena: Electromagnetic Emissions in Soils and Rocks

9616902 Santamarina Wave emission is the sudden release of energy in the form of transient waves. Electromagnetic and mechanical waves provide different and complimentary information about source mechanisms and material properties inherent to the medium. The emission of electromagnetic waves is supported by the principle of energy conservation, Le Chatelier's principle, and energy coupling phenomena. Preliminary tests conducted on intact rock specimens showed evidence of electromagnetic emissions. This Small Grant for Exploratory Research explores the significance of energy coupling and electromagnetic emissions in selected rocks and soils. Experimental materials will be selected to isolate or highlight specific emission requirements. Results will be interpreted within the context of hypothesized emission mechanisms, fulfilling energy balance. Emphasis will be placed on coupling mechanisms that justify emissions in the radio-frequencies so that waves have significant penetration depth through geomaterials to allow for remote detection (including piezoelectricity, charge separation, and double layer polarization. Complementary research tasks include the enhancement and calibration of the monitoring system, and the characterization of signatures from pure failure modes in rock. ***